Chemistry of Luminescent Porous Silicon

The goal of this work is to understand the origin of luminescence in porous silicon, and to explore the relationship between luminescence and surface chemistry of this material. The first goal will be achieved by testing the three current hypotheses explaining photoluminescence in porous silicon. The second goal will be achieved by observing the changes that occur in emission intensity, wavelength, and lifetimes on exposure of the materials to various chemical reagents such as Lewis acids or bases, electron, hole, or energy transfer agents, and polar or polarizable species. The mechanism of luminescence quenching of porous silicon by gas phase species will be studied. The silicon surface chemistry will by developed by tuning the quenching response for specific adsorbates. The unique ability of porous silicon to change its fluorescence color and intensity in the presence of chemical adsorbates opens up a range of possible application for gas, liquid, and biological sensors. In addition, an understanding of the fundamental photophysics of porous silicon under these conditions may lead to the development of full-color flat panel electroluminescence displays. these potential development can build on well- established silicon processing technology. The key contribution of the proposed work is that it will define the chemical and photochemical reactivity patterns of luminescent porous silicon, providing the design rules for the development of such applications.